Photophysics of Photosynthetic Systems and their Models

9629862 Mauzerall The recently developed method of pulsed, wide-band, time resolved photoacoustics will be used to determine the thermodynamic properties of transient species in photosynthesis and photoinitiated electron transfer reactions. This method determines the enthalpy and volume changes in these reactions. Given that the free energy of many of these reactions are known, the entropy can be calculated. The charge seperation in the initial photoreactions causes volume changes dominated by electrostriction, which is directly related to the dielectric response of the system. This is a critical parameter in electron transfer reactions. The measured enthalpy also provides a direct measure of the thermodynamic efficiency of the system. A longer term objective is to determine the enthalpy and volume changes of the individual steps in the cycle of oxygen formation. %%% Photosynthesis is an efficient system that converts sunlight into chemical energy which supports life on earth. The understanding of this system is a major goal of much research. To achieve this goal it is necessary to have detailed knowledge of both the kinetics, i.e. how fast do the steps in the process happen, and the thermodynamics, i.e., what are their energetics or efficiencies. The past decades have produced major progress in the first area. This work is aimed at producing the required progress in the energetics area using the new photoacoustic methodology. A practical application of this research will be development of rapid unambiguous assays of photosynthetic efficiency. Calculations of oceanic productivity depend critically on photosynthetic efficiency. It is also possible that the photoacoustic methodology could be used in the field to determine photosynthetic efficiency and water content of leaves. ***